Subtle Tests of the Standard Model

Research in theoretical elementary particle physics will focus on the dynamical properties of the heavy quarks, namely the beauty, charm and top quarks. Among the central mysteries of the so-called Standard Model of High Energy Physics are the questions of how do the basic constituents of matter - namely quarks and leptons-acquire their masses and why do they come in so-called families, i.e. exact triple replications of each other except for their masses. The mass generation process can be probed in the most sensitive way by studying limitations of microscopic time reversal invariance. Violations of this invariance are an essential ingredient when one tries to understand the observed baryon number of the universe as a dynamically generated quantity rather than as an arbitrary initial condition.